SGER: Bioengineering of Immunolabels for EFTEM

The identification of biomolecules within complex multi-molecular bioassemblies is a necessary step toward understanding the structure and function of a living cell. Energy filtering transmission electron microscopy (EFTEM) represents an efficient method for this identification. Bioengineering of immunolabels containing incorporated atoms of exogenous elements will allow us to reveal the distribution of these labels based on the elements mapping. The objective of this project is the bioengineering of immunolabels suitable for marking molecules in the complex multimolecular bioassemblies and for detecting them with EFTEM.

Four new types of molecules will be engineered: 1) constructs of chimeric protein G containing the metal binding sequences of the ferritin heavy chain; 2) chimeric avidin containing metal binding sequences of metallothionein; 3) chimeric scFv with poly-histidine tags; and 4) new metallo-organic clusters with functional groups. These constructs will be used to demonstrate the feasibility of mapping of specific molecular entities within intact cells using EFTEM.